Show-Me Project: A National Center for Standards-based Middle School Mathematics Curriculum Dissemination and Implementation

9714999 Reys A national center, the Show-Me Center, is established at the University of Missouri, Columbia for facilitating and supporting implementation of middle school mathematics curriculum based on recommendations of the Curriculum and Evaluation Standards for School Mathematics issued by the National Council of Teachers of Mathematics. The Show-Me Center, in partnership with the five NSF-supported middle school mathematics materials development projects (Connected Mathematics Project; Seeing and Thinking Mathematically; Mathematics in Context; Six Through Eight Mathematics, and Middle-school Mathematics Through Applications Project) and their commercial publishers, disseminates information and facilitates national awareness and implementation of new curricular models which support Standards-based reform in middle school mathematics classrooms. Each materials development project serves as a satellite center and is a focal point for establishing networks of teachers, schools, districts, and state leadership personnel exploring and investing in standards-based reform.